Efficient Decoherence Control Algorithms

EIA-0218582
Andreas Klappenecker
Texas Engineering Experiment Station

Efficient Decoherence Control Algorithms

This project investigates general classes of quantum error control codes and associated fault-tolerant operations to prevent derailing of computations on a quantum computer due to decoherence effects. The topics being explored in this project include i) the structure of nice error bases, ii) extensions of stabilizer codes, iii) Clifford codes, iv) efficient encoding, recovery, and decoding algorithms for quantum error control codes, and v) methods for the realization of fault tolerant operations.